Structure-Function Analysis of Protein Synthesis Elongation Factor G

9407935 Breitenberger Bacterial protein synthesis elongation factor G (EF-G) catalyzes the translocation step of protein synthesis, reconfiguring the ribosome after the formation of each successive peptide bond. The complex translocation reaction catalyzed by EF-G is very poorly understood, underscoring the importance of analyzing the structure and function of bacterial EF-G. The objectives of this research are to prepare site-directed mutations in defined regions of the E. coli EG-G gene and to use biochemical and genetic methods to analyze the effects of these mutations. One of the proposed regions for mutagenesis includes the proposed ribosome-binding domain of EF-G and other GTP-binding protein synthesis factors. A threonine to serine mutant in this domain has been isolated, which appears to be partially functional, even though threonine is invariable in wild-type elongation factors. Interestingly, expression of mutants in which the same threonine has been changed to alanine or proline results in a slow-growing phenotype in vivo. A highly conserved arginine close to the threonine seems to essential for EF-G function. Further characterization of these and other mutants described in the proposal will lead to a better understanding of EF-G structure and function, as well as to new insight into the structure and function of other members of the GTPase superfamily. %%% The synthesis of proteins inside living cells is an elaborate, multicomponent process, which consumes large amounts of energy. The bacterial protein, elongation factor G, or EF-G, is an essential participant in this process. The role of EF-G is to ready the protein synthesizing apparatus for the addition of each new amino acid to the protein being synthesized. Very little is known about the mechanism of action of EF-G, although tantalizing clues come from comparisons of EF-G structures between different organisms. In particular, structures which are always found in EF-G function. The objective of this proposal are to make discrete changes in conserved parts of the EF-G protein and to determine how the changes affect EF-G function, using a combination of biochemical methods and the powerful techniques of bacterial genetics. These studies will lead to a better understanding of how EF-G plays its part in protein synthesis. Knowing the details of how proteins are synthesized, and how protein synthesis is controlled and coordinated with intracellular processes. ***